The Roles of Calcium Pulses, Waves, and Gradients in Early Development

The roles of free cytosolic calcium pulses, waves, and gradients in the early development of ascidian eggs as well as of cellular slime molds will be explored. The proposal is particularly concerned with the roles of calcium in establishing developmental pattern in these systems, i.e., in ooplasmic segregation in the Ciona or Phallusia egg; and in establishing a pattern of prestalk and spore cells in Dictyostelium. These explorations will be carried out in three main ways: 1) Directly visualize free calcium changes and patterns with the aid of the photoprotein aequorin and an imaging photon detector. 2) Specifically perturb (and thus study the roles) of these calcium patterns with various means which will include the injection of newly synthesized weak calcium buffers. 3) Examine the transcellular calcium currents which help produce these free calcium patterns by using a newly developed calcium-specific vibrating extracellular electrode. %%% The development of an early embryo is controlled by gradients of informational molecules localized in different regions of the unfertilized and newly fertilized egg. One of the major components involved in establishing this information appears to be coupled to calcium distribution itself. Dr. Jaffe will test this idea directly using reagents and detectors originally developed in his laboratory.